Geometry and dynamics of representations into semisimple Lie Groups

The PI plans to establish new results concerning geometric and dynamical
properties of special subsets of the representation variety of a finitely
generated group into a semisimple Lie group. Besides classical methods
from differential geometry, rigidity theory and algebraic groups, new
techniques from continuous bounded cohomology will be employed in an
essential way. The project builds upon previous joint work with M. Burger
and A. Iozzi,in which the bounded Kaehler class, a second continuous
bounded cohomology class, was used, both, to establish rigidity results
for Zariski dense representations of arbitrary finitely generated groups
into Lie groups of Hermitian type, as well as to define and study
connected components of the representation variety of a surface group,
which give generalizations of Teichmueller space. One part of the project
concerns the study of refined geometric properties of surface group
representations in these special components, of parametrizations similar
to Fenchel-Nielsen or shear coordinates on Teichmueller space, and of the
explicit relations between these generalized Teichmueller spaces and the
moduli spaces of Higgs bundles and of locally homogeneous geometric
structures on the surface. In a second part of the project, methods and
techniques used in the study of the bounded Kaehler class will be extended
to define and investigate bounded cohomology classes in higher degree,
which are expected to give rise to new rigidity phenomena and structural
results about representations into other semisimple Lie groups.

Symmetries arise everywhere in nature and are very important in biology,
chemistry, physics and mathematics. Mathematically one way to study
symmetries is to consider symmetry groups, that is groups of
transformations preserving the given symmetries. Patterns with many
symmetries are often optimal configurations and as such stable or rigid,
because small deformations or changes destroy the symmetry. Sometimes
patterns with symmetries arise in families and form so called "moduli
spaces"; then, small or even large deformations do not break symmetry even
though they change the pattern. In this project both phenomena are
detected and studied using a special measurement for the geometric
complexity of objects, which depends only on their symmetries.